CICI: Secure Data Architecture: CapNet: Secure Scientific Workloads with Capability Enabled Networks

Modern scientific experiments have outgrown the capacity of a single lab.
They require the storage and processing power of a datacenter, involve
cross-institutional access to sensitive data, and span multiple domains of
administrative trust. In such a setting, security is fragile. In the face of
steady growth of sophisticated cyber-attack tools, modern server and desktop
machines are fundamentally insecure. Over a hundred critical
vulnerabilities that allow unrestricted access to the entire system are
discovered in the Linux kernel each year. Lacking flexibility to express
fine-grained access control policies, modern networks often give vulnerable
hosts excessive or even unrestricted connectivity to the rest of the network.
An exploit of any host enables attackers to explore, exploit and take control
over an entire cyber facility. Without support from the network, scientific
facilities will remain vulnerable.

CapNet is a network architecture that enables secure, least privilege
collaboration in the cross-institutional environment of a modern research
facility. Building on the principles of capability access control, this
research develops key elements needed to secure a network of a modern
scientific infrastructure: 1) "off by default" behavior, with connectivity
granted on as-needed basis; 2) mechanisms for decentralized,
application-driven dynamic management of connectivity; and 3) a formal
foundation enabling secure collaboration of fine-grained, dynamic,
multi-institutional principals. The basis for CapNet's design is strong
isolation of network activities with the mechanisms of software defined
networks (SDN) and mediation of all communication between network hosts by
a capability access control model. CapNet represents the network as an access
control graph. Nodes are network hosts, edges (or "capabilities") are
pointers to other hosts allowing communication and further exchange of rights.
By controlling the initial distribution of capabilities and their flow, CapNet
governs network interactions through fine-grained, application-driven policies
that enable safe collaboration among multiple institutions and third-party
services. Finally, while taking a holistic approach to network access control,
CapNet remains practical: it retains compatibility with unmodified network
network stacks, integrates with existing datacenter and cloud management
stacks, enables incremental adoption, and is fast and scalable.